The Animal Rights Movement: Value Conflicts Over Scientific Research

The Studies in Science, Technology and Society program supports research that examines the structures and processes that influence the direction and use of science and technology in their social, political, and economic contexts. Ethics and Values Studies supports research that examines the social, professional and individual values and mutual obligations and responsibilities that arise in interactions of science, technology and society. Research projects often examine social controversies surrounding impacts of or on sciences or technologies. This research addresses a very important EVS issue .. controversies surrounding the use of animals in research. Prior EVS.supported research on this issue has examined ethical foundations for views about animal experimentation, legal developments, and the views of Animal Care and Use Committees. The current research takes an empirical approach that will provide data and insight on (1) contrasting perceptions of the ethical dilemmas raised by animal experimentation and (2) the dynamics and impacts of these controversies on science, technology and society. Assisted by an advisory group including scientists and social theorists with different views of the merits of arguments for and against animal research, the two investigators will review scholarly as well as popular media accounts of animal rights and animal welfare concerns and activities; and they will interview and observe activists and scientists concerned with several crucial cases and new legislation and regulations concerning animal care and use. The research and analysis will focus on recruitment of members and supporters to different factions in the controversy, evolution of the organizations and tactical choices, and effects on scientific research. Results will include a series of articles for researchers, STS scholars and policy makers, and a book directed at the wider public that is interested in these issues. This project will contribute to professional and public discussion of issues surrounding uses of animals in research. The investigators are very well.qualified; results from prior support of the co.principal investigator have been timely, informative and well.received. Institutional support is adequate and costs are reasonable. Total support in the amount of $80,705 is recommended.